Full-Field Three-Dimensional Particle Velocimetry and Sizing in an ARC-Spray Coating System

The proposed projects has two major objectives: 1) development of a new optical diagnostic capable of making simultaneous, full-field measurements of all three velocity components and particle size and number density distributions in two-phase flows, and 2) characterization of particle trajectories and size distributions in an arc spray coating system and their relation to coating porosity and grain structure. The accuracy and dynamic range limitations of the new technique will first be characterize in a small wind tunnel seeded with known size particles. Both free stream and stagnation flow measurements will be made and compared to independently measured velocity profiles. A single solid- state camera would acquire images of particle velocities (all three components), sizes, and number densities. The technique will be used to characterize the relationship between particle velocities, size, and temperature to coating quality in an arc spray system. Similar conditions exists in paint sprays and fuel sprays.